ROW: Fast Switching 2-Dimensional Modulation Doped Pseudomorphic (MODFET) Hetrostructures

Planning activities towards establishing of an independent research center in the area of fast switching devices will be undertaken. In particular, two-dimensional modulation doped pseudomorphic hetrostructures as very attractive candidates for fast switches will be analyzed and designed. Appropriate laboratory and computing facilities shall be utilized.